Postdoctoral Research Fellowships in Chemistry

Dr. Robert J. Hinde has been awarded a Postdoctoral Fellowship in Chemistry. Dr. Hinde's doctoral degree was from The University of Chicago with Professor Stephen Berry. Dr. Hinde intends to continue his research with Professor Gregory Ezra at Cornell University. Dr. Hinde's postdoctoral research will be an investigation into questions of phase space transport and trapping in chemically interesting multimode Hamiltonian systems. This will help prepare him for his career goal of establishing an active research program focussing on intramolecular energy flow and the quantum mechanical behavior of chaotic dynamical systems. %%% The Postdoctoral Fellowships in Chemistry Program is viewed as an important infrastructural program designed to broaden the knowledge and experience of new Ph.D.'s and attract them into meaningful careers in contemporary chemical research and teaching.